The Hawaii Imaging Fabry-Perot Interferometer (HIFI)

The velocity fields of extended optical emission line regions can be mapped with a facility that now exists in Hawaii. An imaging Fabry-Perot interferometer is available for use in conjunction with CCD detectors. A sophisticated data reduction and analysis system has been implemented to handle the substantial data- processing requirements. The emphasis of the current program has been on mapping the extended regions with anomalous velocities around active nuclei in nearby galaxies. The high photometric quality of the detectors, the special capabilities provided by the high-finesse, large free-spectral-range etalon, and the possibilities for high spatial resolution at Mauna Kea are all advantages that have been exploited to obtain information of exceptional quality on regions about active nuclei. The amelioration of certain marginal aspect of the optical- mechanical system of the existing, to span the optical and near- infrared spectrum, and a more powerful data reduction capability will be implemented the development of the extension of the capability.